Collaborative Research: Paleoclimate and Glaciological Recontructions in Central Asia

This collaborative proposal seeks support for a project to obtain and interpret ice-core records from the Tien Shan area of central Asia and to collect and analyze modern observational data from the area. Specifically, the project will obtain ice cores 200-250 m in length from the Inilcheck Glacier in the central Tien Shan and perform the analyses necessary to prove that these ice cores provide a detailed paleoclimatic record for the last 2000-300 years. Detailed meteorological, hydrological, and glaciological measurements will also be made and placed in the context of historical measurement in the area.